Seventeenth Fungal Genetics Conference at Asilomar, California on March 23-28, 1993.

SEVENTEEN FUNGAL GENETICS CONFERENCE Organizers: Richard Weiss, University of California, Los Angeles Brett Tyler, University of California, Davis Godeleine Faugeron, Universite Paris-Sud %%% The Seventeenth Fungal Genetics Conference, will be held at the Asilomar Conference Center at Asilomar, California on March 23-28, 1993. Approximately 400-500 scientists and students from around the world will attend. The conference is focussed on the molecular biology, genetics, biochemistry and cell biology of filamentous fungi. The meeting consists of six plenary sessions, three poster sessions, informal discussions, and a day devoted to concurrent workshops in specialized areas. Topics covered are sexual and asexual reproduction, genetic instability and variation, mechanisms of gene expression, and agriculturally, medically and industrially important fungal systems. Strong emphasis is placed on the participation of scientists and students from under-represented groups.